Development of Laser Microprobe irmMS Methods for the StableIsotopic Analysis of Sulfide Minerals Using SO2 Gas

9811170 Crowe This award supports the development of new instrumentation for in situ laser microprobe analysis of d34S with 0.1-0.3 permil precision and 20-30 micron spatial resolution. The proposed second generation instrument differs from current laser microprobe instruments in three ways. First, a pulsed ultraviolet laser rather than a continuous-wave infrared laser will be used for combusting samples. The UV laser will improve the spatial resolution of combustion from the current >100 micron scale to 20-30 micron while minimizing thermal alteration in zones surrounding the combustion pit. Second, samples will be purified using a flow-through interface with oxidation and reduction reactors and gas chromatography rather than via cryogenic distillation. This will provide better control of the chemical speciation of combustion products and will facilitate efficient transfer of analyte to the mass spectrometer. Finally, the mass spectrometer will be upgraded to allow isotope-ratio- monitoring rather than dynamically-switched microvolume inlet techniques, thereby reducing sample size requirements by two to three orders of magnitude. The mass spectrometric portion of this project will include development of new algorithms to calculate the isotopic composition of sulfur from the molecular spectrum of SO2. Upon completion, the proposed instrument will be applied to projects in high-temperature geochemistry, economic geology and isotope thermometry for which the spatial resolution of the current laser microprobe is inadequate. Foremost among these projects are (i) fundamental investigations into the effects of metamorphism on isotope thermometry, and applied studies focusing on (ii) sulfur transport in shallow hydrothermal systems, (iii) coupled biogeochemical cycling of carbon and sulfur and metal mineralization in salt-dome cap rock environments, and (iv) the sulfur isotope geochemistry of Australian gold deposits. ***